A Hypermedia Based Learning Environment for the Economics ofIndustry

This award provide funds to develop a hypermedia based learning environment for a course in the economics of industry in the Department of Economics at Miami University. Hypermedia/hypertext materials will be developed for use by junior and senior undergraduate students that supplement the standard textbook and lecture materials. The hypertext materials will derive from general and professional literature on the issues not normally accessible to students. Students explore the hypermedia materials at a computerized workstation within an integrated software environment. Explorations by students arise from both assigned analyses and student motivated review of topics. The integrated software environment allows the student to undertake assignments from start to finish, at the workstation. The computer equipment consists of one network server, ten student workstations, and two network printers. The network server functions as the repository for the hypermedia data and software. A student workstation provides the access to the hypermedia material while two network printers are for output of students assignments. The project provides a framework for accessing and analyzing large amounts of diverse information in hypermedia format by the students. The hypermedia environment will be able to change and grow as understanding of the topic material improves. The university will provide 50% matching funds from non-Federal sources.